Connection to NSFnet

Southern Arkansas University is establishing a connection to NSFNET via a 56,000 bits per second line through the State of Arkansas ARKNET and MIDNET mid-level networks. The connection enables the school's faculty and students to communicate and collaborate with the international scientific and edicational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years.